PECASE: Intracellular Signaling Networks in the Immune Response

Proposal Title: PECASE: Intracellular Signaling Networks in the Immune Response
Institution: North Carolina State University

The objective of the proposed research is to study T lymphocyte (T cell) regulation at the intracellular level, with a focus on molecular signaling processes initiated by the cell surface receptors for the cytocines, interleukins (IL)-2 and (IL)-4. The specific objectives of this research include: (1) the quantitative analysis of pathway crosstalk interactions in IL-2 receptor signaling, using interventions that target specific intracellular molecules, (2) the characterization of the cooperation of IL-2 receptor-mediated signaling pathways in mediating T cell life (proliferation) and death (apoptosis) decision making, and (3) the elucidation of the synergistic effect of IL-2 and IL-4 on T cell expansion at the level of signaling network interactions. This research could provide new information to help modulate cell function, with potential application being the elucidation of therapeutic strategies.

This project was originally funded as a CAREER award, and was converted to a Presidential Early Career Award for Engineers and Scientists (PECASE) award in May 2004.